Biocompatible MEMS

The proposal is focused on developing an enabling generic technology to make MEMS devices compatible with biological fluids. The specific goal is to use surface modification and analysis strategies to understand protein interactions with the surfaces of modified and unmodified devices under flow and static conditions, and to be able to eventually make any material used for MEMS fabrication biocompatible. We will investigate the adsorption of differently charged proteins on specific surfaces in a variety of channel geometries and at different flow rates. We will examine not only surface modifications that resist protein adsorption, but also modifications that impede denaturization, as protein resistance is not the same as prevention of protein denaturization. The ultimate goal will be the eventual incorporation of a protein(s) in a stable layer that prevents denaturization and protein buildup modeled on capillary systems. The applications of this work span the range of science and technology, and could cause a fundamental change in how the industrial sector deals with the issue of biocompatibility. It also provides educational training for students and postdocs in a multidisciplinary area.